Development and Application of a Problem Specific Parallel Programming Environment for Marine Seismic Tomography

Toomey 9522531 This research which is a cooperative effort between seismologists and computer scientists at the University of Oregon - aims to develop a high performance computing (HPC) environment for marine seismic tomography and to test that environment by applying it to existing delay-time data from the east Pacific Rise (EPR) at 9 degrees 30 minutes north. This project will develop a problem-specific programming environment (PSPE) for seismologists, initially designed around an existing tomographic code. The environment will extend infrastructure (already developed by the PIs) that supports "models of observability " for uniform tool interaction at the programming language level. The extensions will raise the model abstractions to the applications level, giving the seismologist a familiar environment for interacting with development tools. The environment will be tested first by applying it to delay-time data from the EPR. This data has already been analyzed in publications addressing the velocity and attenuation structure of axial magma chambers but efforts to image the P wave velocity structure have focused only on the upper crustual sect. Significant performance improvements in the code will, for the first time, allow a simulations analysis of the complete data set, resulting in an unprecedented image of the full crustal.